Independent Sets in Hypergraphs

This project focuses on a wide range of scholarly and educational activities related to the PI's research interests in extremal combinatorics. This research area often employs a broad array of tools and results from other fields of mathematics, and in return, it has many interesting applications in fields such as number theory, linear algebra, probability, geometry and information theory. The research topics in this project include extremal problems on random and quasi-random structures. The research involves collaboration with graduate students, contributing to their education, including the development of graduate level courses. Furthermore, many of the proposed problems will be useful to test how AI performs on them.

The container method, which has surprisingly many deep and interesting consequences, exploits a subtle clustering phenomenon exhibited by the independent sets of uniform hypergraphs, whose edges are sufficiently evenly distributed. The container method is very useful in counting discrete structures with certain specific properties; in transferring theorems into random environments; and in proving the existence of discrete structures satisfying some important properties. As a main tool, it has been already used in solving over fifty problems. The project focuses on further developing the theory of the container method, especially connecting it to other methods of the field, and on finding further interesting applications.